Project LABS: Least-impact Analysis of Biotic Systems

This award provides funds to the Department of Biological Sciences at the Florida Institute of Technology for Project LABS, which involves the development of a conservationist curriculum for the biological sciences. The LABS project will develop skills and analytical techniques that involve least-impact sampling, and emphasizes computer-assisted descriptive techniques. Funds will be used to purchase computer workstations and appropriate field- sampling equipment. The program will emphasize 1) Least- destructive field sampling techniques, 2) Optimized field and laboratory analysis; 3) Descriptive field and laboratory skills, enhanced by the use of video- and computer-based techniques appropriate to modern biology; and 4) Student preparation of computer simulations of biotic systems. The project's goal is to train undergraduate students in skills that will provide additional capabilities for graduate research, as well as skills useful in public-contact biology careers. In particular, the project should encourage students to pursue careers in taxonomy and life-history studies, to supply anticipated national and international needs for documentation of biodiversity. Student participants in the program should also gain significant appreciation of the ethics of biological conservation. The grantee is matching this award with non-Federal sources.